Promoting Ocean Science and Technology Through Informal Science Education: Opportunities for Underrepresented Youth

Revised Abstract, 0303319, Crane, N., Cal. State University Monterey Bay Foundation

This award will provide ocean science education opportunities for underrepresented middle school students in the Monterey/Salinas area. The project is a collaborative effort between the SEA (Science Education Adventure) Lab and RISE programs at California State University at Monterey Bay and 4 middle schools in the region. The RISE (Recruitment in Science and Education) program will recruit and provide stipends for underrepresented student participants. SEA lab will design and implement a one-week field-based summer youth program, a day program for youth and their families and a SEA Guides mentoring program for high school students and middle school teachers. Project staff will work with middle school teachers to implement grade appropriate ocean science curriculum designed to fit within the California Science Framework and conduct teacher planning and curriculum development workshops.

Year 1 will focus on planning and piloting the field-based summer student experience and the SEA Guides mentoring program. In years 2 and 3, all components will be implemented. Project assessment will be conducted in collaboration with faculty at the University of California Santa Cruz.